The ESIP (Earth Systems Program Implementation Project) Project

9454411 Reid The Earth Systems Implementation Project (ESI) is the culmination of an elementary science reform effort which was first initiated by the Anchorage School District's (ASD) elementary teacher in 1992 and which builds on the systems award winning elementary science program. The effort has involved administrators, parents, and community members from the major Alaskan science professions working with teachers to develop an advanced K-6 inquiry-based hands-on science curriculum. This new curriculum made up of modules from nationally validated elementary science materials development projects will be implemented in each of the districts 58 elementary schools. To accomplish this the project will prepare approximately 1,000 elementary school teachers with the content and teaching strategies needed to implement the program. The project will also involve over 2,000 parents to work directly with teachers in support of the project. Cost sharing will be 69% of the NSF funds. ***